Seasonal Plasticity in the GnRH System

Lay Abstract Lehman, Michael A major challenge of biology is to understand how the brain controls the secretion of hormones that regulate fertility. One such essential hormone is gonadotropin- releasing hormone (GnRH). GnRH is the master hormone controlling reproduction in animals and man. It is made by brain cells, and carried by specialized blood vessels from the brain to the pituitary gland, where it controls the secretion of other hormones. The PI's long-term goal is to understand the signals and neurochemicals in the brain that regulate the activity of GnRH cells. The model animal used to study GnRH cells is the sheep. Like most other mammals, sheep are seasonal breeders, their reproductive activity being restricted to a single breeding season during year. Seasonal breeding is sometimes called "nature's contraceptive" because it represents a natural form of fertility control. Yearly cycles of breeding in sheep and other animals are primarily due to changes in the activity of GnRH cells. During the breeding season in sheep there is a dramatic increase in the number of inputs (or "synapses") that GnRH cells receive from other brain cells. One exciting possibility is that this change in the number of synapses is responsible for the start of the breeding season, but more work is needed to confirm this. In any case, this seasonal change is a striking example of how the brain, even in adult life, is not completely "hard-wired" and is capable of significant structural reorganization. The work proposed here will explore the role that thyroid hormones play in these seasonal changes in brain structure. Recent work has shown that thyroid hormones are required for seasonal breeding, act in the brain to promote this seasonality, and play a critical role in influencing the structure of the developing and adult brain. Furthermore, GnRH cells contain appropriate receptors to allow them to respond to circulating thyroid hormones. To test the role of thyro id hormones, we will analyze and compare the inputs of GnRH cells between the brains of thyroidectomized and thyroid- intact ewes using the electron microscope. This study is a first step toward understanding the signals that regulate seasonal changes in GnRH cells, and will help reveal fundamental mechanisms responsible for seasonal biology in animals. As an example of "brain remodeling", this knowledge will also provide clues as to the factors that promote and regulate connections between nerve cells in the adult brain.